Free Boundary Problems

We plan to study a variety of free boundary problems. The first one deals
with growing polymeric crystallines. The unknowns are temperature in the
melt and the growing surface. The speed of the free boundary is a given
function of the temperature, and free boundary points move in such a
direction so as to minimize the travel time. We wish to establish the
existence of the solution and to determine the shape of the free boundary.
The second problem deals with non-Newtonian jets. We want to approach it
via nonlinear perturbation of the linearized case, a case we have recently
studied. The next problem is to develop a general bifurcation theory for
free boundary problems. Here we expect to be guided by recent work that
we have done dealing with special models that arise in mathematical
biology. In order to determine the stability of the bifurcation, we shall
first study the asymptotic behavior of solutions of free boundary
problems, including the Hele-Shaw problem and the evolution of viscous
drops. Subsequently we shall consider the more complicated problems that
arise in mathematical biology, such as the evolution of tumors and of
protocells. Finally, we shall study the evolution of cracks in elastic
media. We expect to utilize formulas that we have derived for the
evolution of the stress intensity factors.

Free boundary problems deal with solving partial differential equations in
a domain, a part of whose boundary is unknown in advance; that portion of
the boundary is called a free boundary. In addition to the usually
prescribed initial and boundary conditions, an additional condition is
imposed at the free boundary, and one seeks to determine both the free
boundary and the solution to the differential equations. A seemingly
small change in the conditions imposed at the free boundary often result
in, technically, an entirely different problem. Special examples have
historically guided research in this field; some of the most commonly
known examples are flow of liquid in contact with air, air streams behind
an aircraft, solidification of steel, and melting of solid. Special
examples motivated by physical models continue to be a driving force in
the development of the field. The present proposal focuses on several
different problems dealing with questions such as crystallization of
polymers, jet flows for non-Newtonian fluid (e.g. inkjets), bifurcation of
free boundary problems arising in biology, nonlinear stability, and
propagation of cracks in elastic media. In all these problems, the goal
is to prove that there is a mathematical solution to the scientific
problem and to determine properties of the free boundary.